Faculty Development for Excellence in Engineering Instruction

Engineering - Other (59)

This project is supporting a workshop to identify specific activities that the American Society for Engineering Education (ASEE) should undertake or expand in order to support transformational engineering faculty development for instructional excellence. The workshop is bringing together varied stakeholders in engineering education to identify, analyze, and summarize existing knowledge and practices that contribute to effective engineering faculty development for instructional excellence focusing on what ASEE currently does and should be doing. The output of the workshop will be a report and a set of consensus recommendations. This is the beginning of a larger process that will then use the report as a framework for new and expanded ASEE initiatives to support and encourage instructional excellence in the nation's engineering education programs.